2016 Gordon Research Conference on Tribology: Scientific Advancements for Critical Applications in Friction, Lubrication, and Wear; Lewiston, Maine; June 26 - July 1, 2016

This award is for partial support of the Gordon Research Conference (GRC) and Gordon Research Seminar (GRS) on Tribology, to be held June 26 - July 1, 2016 at Bates College in Lewiston, Maine. Tribology - the study of friction, lubrication, and wear - is essential to technological applications with moving parts, from large machineries and cars, to medical implants, to micro-mechanical mirrors in projectors. Regular meetings of the key researchers in this field are necessary for the exchange of ideas, information, and state-of-the-art technologies, in order to enable and accelerate advances and breakthroughs the field. The Gordon Conference is a key mechanism for linking the basic sciences with an engineering discipline of significant importance to the US and world economies. This GRC is held biannually and offers an interesting, even unique, forum for the open exchange of new and previously unpublished scientific ideas. In addition to poster presentations, the conference includes presentations and extended discussion and interactions among participants. This forum has been responsible for the generation and incubation of breakthrough and truly transformative ideas in a wide variety of topical areas. An important aspect of the 2016 conference is the Gordon Research Seminar. Following from the success of the 2014 Seminar, the 2016 Gordon Research Seminar is a forum for students and early-career researchers to exchange ideas in an informal but dynamic setting.

NSF support of this GRC from the Materials Engineering and Processing Program and the Geophysics Program will enable the participation of junior participants, including graduate students, postdoctoral fellows, and early career faculty members, funding a total of 54 participants (29 for the Gordon Research Conference and 25 for the Gordon Research Seminar), and 25 travel grants for the Gordon Research Seminar.